Sedimentation Processes in the Eastern Equatorial Pacific

The equatorial Pacific has been the object of several studies in the fields of physical oceanography and marine geology. The region is known to have a strong response to climate change over many different time scales. This includes seasonal and interannual variations, late Pleistocene rhythmic changes associated with orbital forcing and high latitude glaciation, and long-term evolution of climate systems associated with changes in late Neogene oceanic boundary conditions. A critical aspect of modern oceanographic research is to deduce the timing and global relations of these oceanographic changes in the eastern Pacific. This award will support a sedimentologic and paleoceanographic study of the eastern equatorial Pacific using seismic reflection profiling and shallow sediment coring. Sediments recovered will be analyzed for their geochemical and paleontologic record. Isotope studies will be used to determine age and history of sea surface conditions. Additionally, data to be acquired will form the basis for recovering longer history of the region using cores recovered by the Ocean Drilling Program.